Mathematical Sciences: Joint Annual Spring Topology Conference and Southeast Dynamical Systems Conference

9317810 Gruenhage A joint conference on topology and dynamical systems will be held at Auburn University on March 24-27, 1994. This is one of a series of annual conferences dating back to 1967 (for the topology part), and well over 200 mathematicians are expected to attend. There will be seven major one-hour addresses and about twenty invited half-hour talks. There will be additional sessions of fifteen-minute talks, and students will be encouraged to participate. Those giving major addresses will include John L. Bryant (Florida State), Robert D. Edwards (U.C.L.A.), Charles L. Hagopian (Cal State at Sacramento), Greg Swiatek (SUNY at Stony Brook and Princeton), Stevo Todorcevic (U of Toronto), and Jeff Xia (Georgia Tech). ***